Database Access Service

This interagency agreement provides for the use of the facilities at the Division of Computer Research and Technology, NIH. We will use the Statistical Analysis System to aid in the analysis of several databases for internal projects requested by the Executive Office of the President, the Congress, the National Science Board, and the Office of the Director, NSF. The mainframe computer system at NIH will be used by PRA to: - develop and store large archival databases; - manipulate the large files to obtain databases tailored to specific analysis requirements; and - download these analysis databases to the PRA computer system. Access is obtained through remote hookup using the PRA system.